Connecticut Logic Seminar

Abstract

Award: DMS-9975450
Principal Investigator: Carol S. Wood

This award will support outside speakers in the Connecticut Logic
Seminar, which usually meets at Wesleyan University and draws
participants from New York, Connecticut, and Massachusetts. The
seminar provides a forum for recent work in a wide range of
logical topics, including model theory, set theory, recursion
theory, proof theory, and computer science.

In recent years the number of connections between logic and other
parts of mathematics has increased, as evidenced by applications
of model theory in algebra, number theory, and analytic function
theory. This has resulted in attendance at the seminar by
researchers from areas outside logic, a trend which the
organizers expect to continue and plan to foster by including
speakers whose work is of broad interest. Speakers and
participants include representatives of every career stage, from
graduate students through distinguished senior leaders, and past
editions of the seminar have led to new collaborations between
researchers and shaped the training and theses of graduate
students.